Elements: NequIP infrastructure for training and deploying neural equivariant interatomic potentials and materials foundation models

Many facets of the US economy require the ability to design and understand next-generation functional materials. Batteries, fuel cells, catalysts, thermal coatings, polymers, electronic materials, and biomolecular systems all depend on atomic scale mechanisms that are difficult to measure directly and too expensive to explore by trial and error. Atomistic simulation can reveal these mechanisms and guide materials design, but the most accurate quantum mechanical simulations are usually too slow for the large systems and longtime scales needed to describe realistic materials behavior. This project will develop and sustain an open cyberinfrastructure ecosystem that will make machine learned models of atomic interactions accurate, fast, reliable, and practical for broad use in science and increasingly in industry. The resulting tools will allow researchers to simulate complex materials with nearly quantum mechanical fidelity at a small fraction of the computational cost, lowering barriers for academic, national laboratory, and industrial users. By strengthening a widely adopted open-source platform for materials simulation, the project will accelerate discovery in areas central to national interests, including energy storage, catalysis, manufacturing, electronics, and health related molecular science. The project will also support education and workforce development by training students and researchers at the intersection of materials science, chemistry, physics, computer science, and machine learning, and by providing tutorials, documentation, reusable models, and community support that make advanced simulation methods accessible to a much wider user base.

The project will expand the NequIP and Allegro ecosystem for training and deploying neural equivariant machine learned interatomic potentials (MLIPs) and materials foundation models. The technical scope includes implementation of several new capabilities that are in strong demand both in academic and industrial research efforts but are not available yet in production-level codes. We will emphasize the following thrusts of innovation: (1) Substantial overhaul for next-generation performance and extensibility significantly boosting performance for both training and large-scale deployment (2) Continuous training and release of accurate benchmark-leading foundation MLIPs, universally applicable across many materials classes. (3) Implementation and assessment of leading uncertainty quantification strategies as extension packages to enable uncertainty-aware active learning and training set generation, significantly enhancing the trustworthiness of simulations. (4) Achieving production-ready GPU-accelerated deployment of explicit long-range electrostatic models. (5) Implementing adaptive multiple time-stepping MD integration algorithms with MLIPs (6) Creating a unified differentiable response framework to model materials response properties (dielectric, magnetic, NMR), ensuring thermodynamic consistency, as well as development of temperature-dependent coarse-grained MLIPs.

This award by the Office of Advanced Cyberinfrastructure(OAC) is jointly supported by the section of Material Research within the Directorate for Mathematical and Physical Science (MPS).